Theoretical Investigation of Access Mechanisms for Semantically Motivated Database Models

The semantically-motivated database models provide constructs for structuring data which correlate with the ways that database users think about it. Prominent examples are the semantic models, the non-first normal form relational model, and data models for supporting the engineering design life-cycle. The research proposed here will focus on the development and theoretical study of access mechanisms for these models. These will include a variety of mathematically defined query langauges for semantic models, including generalizations of the relational calculus and algebra, and of deductive databases. Mechanisms for reducing the inherit complexity of these query languages will be explored.